Modeling the Meridional Overturning Circulation (MOC) in the North Atlantic: Seasonal to Decadal Variability

9531852 Chassignet This project is a contribution to the modeling component to be carried out as part of the Atlantic Circulation and Climate Experiment (ACCE) under the World Ocean Circulation Experiment (WOCE). The focus will be on upgrading existing isopycnal models, data assimilation, and integrating different types of regional models. Comparisons will be made among different modeling approaches in order to assess the strngths and weaknesses of each, and to determine the best overall approach for including ocean variability in climate modeling. Particular attention will be paid to assimilating, into the models, data from the field phase of ACCE, as well as from historical data bases. In this particular project, the PI will investigate the sensitivity of the North Atlantic meridional overturning circulation to changes in forcing and boundary conditions in a series of numerical experiments using the Miami Isopycnic Coordinate Ocean Model (MICOM). Specific applications will be made to seasonal and decadal variability.